CAIG: Artificial Intelligence-Assisted Erosion Forecasting

Earth’s landscapes are continually reshaped by erosion. However, predicting exactly how landscapes will change over time remains difficult. This project will develop artificial intelligence (AI) tools that combine physics-based models with high-resolution map data to improve forecasts of landscape change. This research will provide vital public benefits for hazard assessment and infrastructure planning. The project will foster industry collaborations, create open datasets, and cross-train AI and Earth science researchers.

This project will create a hybrid simulation-to-real framework for forecasting landscape evolution. Physics-informed generative AI models will be trained on ensembles of landscape evolution simulations. Computer vision methods will then be used to learn temporal information from static high-resolution topography. The resulting hybrid models will be refined using real-world elevation data. The hybrid models will support erosion forecasting or hindcasting, landscape evolution model calibration or parameter inference, and landscape evolution model evaluation.